Dynamical Traingulations and Quantum Gravity

***
9800104
Renken

Classical trajectories are those that minimize an action. Quantization involves considering all possible paths, even those that do not minimize the action, and summing over them with weights determined by the action. Einstein's theory of gravity can be described in terms of an action which is minimized by the classical solution for the spacetime metric. If gravitation is quantized in a manner analogous to all other fields, then it is necessary to consider all possible metrics and to sum over them with appropriate weights. Defining the set of all possible metrics and performing this sum are the basic issues addressed here.

Professor Renken will try to construct a quantum theory of gravitation by constructing a computer-based version of the theory. This work is of fundamental importance to physics, and addresses the major outstanding problem in theoretical physics research.
***